Submillimeter Galaxies

Dr. Wilson and his team will carry out a research program to analyze and understand recent data taken with their 1mm wavelength bolometer camera (called AzTEC) to measure millimeter continuum dust emission from submillimeter galaxies (SMGs) within, or lensed by, galaxy clusters in the COSMOS field (a region of the sky that has been studied extensively at many wavebands). This is the largest survey to date of the SMG population. The team will study hierarchical structure formation and evolution via the evolution of the SMG population in cluster environments. The work will utilize panchromatic observations resulting from a number of radio, millimeter, and optical telescopes. The resulting dataset will guide numerical simulations and semi-analytic structure formation theories. The project will also map the small-scale Sunyaev-Zeldovich emission in a suite of large clusters in order to quantify the importance of mergers.